Monolithically Integrated Tunable ZnO SAW Chip

This proposed research focuses on the materials growth, device design and fabrication, and
applications of a ZnO monolithically integrated tunable surface acoustic wave (MITSAW) chip. The
novel chip integrates acoustic, optical and electrical process' in one material system. It uses tunable
acousto-electric and acousto-optic interaction between surface acoustic waves (SAW) and a two
dimensional electron gas (2DEG) in a ZnO/MgxZn1-xO quantum well.

ZnO is a multifunctional material possessing unique electrical, optical, acoustical, and mechanical
properties. The high electromechanical coupling coefficients of piezoelectric ZnO in conjunction with the
low acoustic loss and high velocity of sapphire (Al2O3) offers high frequency and low loss RF
applications. Alloying ZnO with MgO forms the ternary compound MgxZn1-xO, which permits band-gap
tuning from 3.32 eV to 4 eV. ZnO/MgxZn1-xO heterostructures with 2DEG can be integrated with SAW to
create a unique acoustic velocity tuning mechanism. The 2DEG interacts with the lateral electric field
resulting in ohmic loss, which attenuates and slows the surface acoustic wave. This mechanism is used to
tune the acoustic velocity. The high coupling coefficients offered by the ZnO/R-Al2O3 systems allows
velocity tuning up to 1%. Combined with the optical characteristics of the wide and direct band gap
(~3.3eV) semiconductor ZnO and transparent conductive ZnO electrodes, the MITSAW chip can be used
for UV optical signal processing. The proposed MITSAW consists of a ZnO/MgxZn1-xO quantum well
structure grown on a R-plane sapphire (R-Al2O3) substrate using MOCVD. R-plane sapphire is chosen
instead of the popular C-plane substrate, as this substrate provides in-plane anisotropy in the ZnO layer.
By aligning the device parallel to the c-axis of the ZnO film, Rayleigh type surface acoustic waves are
excited, while Love type SAWs are excited when the devices are aligned perpendicular to the c-axis. The
Rayleigh wave mode is suitable for gaseous environment sensing, while the Love wave mode, which has
no vertical wave component, is ideal for liquid environment sensing. The ZnO MITSAW chip also offers
an acoustic-optical dual mode sensing mechanism. Likewise, the optical properties parallel and
perpendicular to the c-axis are different, allowing novel optical devices, such as high contrast modulators,
to be fabricated.

The successful development of the ZnO MITSAW chip technology will provide industry with
state-of-the-art new multifunctional chip technologies. It will not only improve the existing devices but
also develop fundamentally new approaches to many important application areas, including
tunable/adaptive communication systems, novel multi-mode tunable chemical and biochemical sensors,
and optical signal processors such as delay lines and multiplexers.